Congruences Related to Modular Forms

The subject of this proposal is research in the area of congruences, or
p-adic analysis, related to modular forms. The research area of this
proposal combines and provides links between highly abstract and
fundamental objects such as the Eigencurve recently discovered by Mazur
and Coleman, which describes all the two-dimensional Galois
representations in p-adic families, and various elementary number
theoretic objects such as the partition function recently investigated
using the methods of the p-adic theory of modular forms by Ono and
Ahlgren. Some open problems in this area are fairly new. In particular, in
a recently published book "The Web of Modularity: Arithmetic of the
Coefficients of Modular Forms and q-Series" Ono provides many new insights
and results along with a variety of open problems. There are also
long-standing conjectures, for example, those formulated by Atkin almost
four decades ago pertaining to certain congruences for the Fourier
coefficients of the modular invariant. Sometimes the p-adic setting sheds
a new light on questions which come from the complex-analytic theory of
modular forms (e.g., a question about connections between Borcherds and
Shimura maps). This proposal consists of several distinct projects that
address problems of these kinds. These projects are at present in different
stages of development. In all cases the principal investigator has already
obtained certain results, and there are reasons to expect further progress.

Partly motivated by congruences found by Ramanujan and pioneered in works
of Atkin, Serre, and Swinnerton-Dyer, this area of research has steadily
produced significant results during the last forty years. Many important
achievements in theoretical and applied number theory in the last few decades,
including the celebrated proof of Fermat's Last Theorem and elliptic curve
cryptography, are closely related to this area of research. Results from this
kind of number theory find their applications in various areas of mathematics
such as elliptic genera, arithmetic geometry, finite fields, as well as certain
areas of contemporary physics such as mirror symmetry, conformal invariance
and string theory. Sometimes the applications and connections are discovered
years after a result is obtained. Therefore, although no results of this scope or
specific connections to other fields are claimed in this proposal, contributions to
this area of research may well have future applications.